Inhibition of Beta-Lactam-Recognizing Enzymes by Phosphonates - U.S. Nigeria Cooperative Science (Science in Developing Countries).

This project supports the participation of Dr. S. A. Adediran of the Department of Chemistry, University of Ilorin, Ilorin, Nigeria, in a collaborative research project on the enzymology of beta-lactam antibiotics in the laboratory of Dr. Rex F. Pratt, Wesleyan University, Middletown, Connecticut. Previous work by the PI's group has show that beta- lactamases are inhibited by a series of phosphonate monoester monoanions. In this one- year collaborative effort, a series of phosphonate peptide analogs of these phosphonate monoesters will be synthesized and evaluated as inhibitors of DD-peptidases. The results promise to provide important information on the DD-peptidase active site, which could eventually lead to new routes for designing antibacterial agents. The collaborative research would extend Dr. Adediran's experience in enzyme kinetics into a more medicinal or pharmaceutical direction, centered more on organic reaction mechanisms. Such experience will improve Dr. Adediran's teaching and research, and greatly enhance his ability to initiate and coordinate future inter-departmental research collaboration between the College of Science and the College of Medicine at the University of Ilorin. The project is consistent with the criteria for the Science in Developing Countries (SDC) program in that it strengthens collaboration between U.S. scientists and engineers and their counterparts in developing countries, and increases the capacity of scientists and engineers in developing countries to address constraints to development.